Course Development in Scientific Computation

The principal investigators plan to develop three courses during the period of the award. The courses are designed to interest students in aspects of Scientific Computation through computer algebra, numerical bifurcation, and partial differential equations. The students holding fellowships will have various educational tasks, such as writing up clear lecture notes and assignment solutions, software testing, maintenance and consultation. They will also run a weekly tutorial for lectures and demonstrations concerning the use of software for applications in the courses. The three courses will be loosely coordinated through a weekly seminar, in which the principal investigators, and later the students, will give presentations on topics of common interest, and will lead discussion. The award recommendation is for a one-time contribution to equipment and student support for this laudable activity, consistent with the gold of High Performance Computing and Communications.